U.S.-Poland MSC Joint Fund II: Polyurethanes with Liquid Crystalline Character

This proposal supports research between U.S. scientist, Kurt C. Fisch of the Polymer Institute, University of Detroit, and Piotr Penczek of the Institute Industrial Chemistry, Warsaw, Poland under the Maria Sklodowska- Curie Joint Fund II. Dr. Fisch will travel to Poland to continue research in synthesis of novel polyurethanes with possible liquid crystalline properties. The reviewers found the proposed work to be innovative and believed it could lead to interesting and potentially useful new polymers. This project is jointly approved and supported by NSF and the Polish Academy of Sciences under the US-PL Maria Sklodowska-Curie Joint Fund II.